Mathematical Sciences: Differential Systems, Complex Analysis and Geometry

Professor Kuranishi has been very active in leading the Geometry Group at Columbia University. At present there is strong interest in this group in studying a number of deep problems in the area of CR geometry and pseudoconvexity in several complex variables. This is an area in which Kuranishi has made a number of spectacular contributions and still is working very solidly in this direction. He also intends to research on metrics of positive sectional curvature, mainly with the complex quadric surface as a suitable test case. This seems to be quite a rich program which is likely to filter out to the graduate students and postdoctoral workers who are actively working in his group.